Salphasic Clock Planes for Synchronous Systems on Printed Circuit Boards

The design of globally synchronous systems must account for clock skew due to propagation delays through a distribution network. In large or fast systems, electrical path delays must be individually equalized, a tedious and error-prone process. Alternatively, systems can be designed in an asynchronous or clockless form, but asynchronous design is not currently or widely understood or practiced. Therefore, improved technology for distribution of clock signals continues to be important for high-performance systems. Sinusoidal clock signals in the form of standing waves on the clock-distribution conductors can substantially eliminate clock skew across a system. This has been operationally demonstrated in a branching tree of transmission lines in the Pixel-Planes 5 system, where a 160 MHz clock is distributed across a three-rack system with less than 200 ps skew. The work in this project will allow generalization to surfaces, suggesting the design of synchronous PC boards using clock planes for low-complexity and low-skew clock distribution. A series of experiments and circuit developments are being performed to reduce the clock-plane concept to engineering practice. The expected results of this research effort consist of a design methodology that is both simple and reliable, supported by a library of basic circuits and CAD tools.